Research Initiation: Sine Transform Reconstruction Algorithm for Positron Imaging System

In a real-time, Time-Of-Flight Positron Emission Tomography medical imaging system, the execution time of the reconstruction algorithm is an important factor in the overall image reconstruction time. In this research, the performance of a sine transform reconstruction algorithm, which was shown to require fewer operations than the existing algorithm, will be evaluated in terms of the image resolution and the signal-to-noise ratio of the reconstructed image. The objective of this research is to confirm the assertion that this fast reconstruction algorithm does not impair the quality of a reconstructed image. Mathematical analysis on simple images and computer simulation of three-dimensional models of both a heart and a portion of a brain will be done. The effects of accidental coincidence events, the intrinsic resolution of detectors, and the physical arrangement of detectors will also be examined in the simulation. A fast, real-time system can make possible the transient study of biochemical and physiological processes in living organs and may open new frontiers in medical research.